CISE Research Instrumentation

A 32 node hypercube multiprocessor will be provided for researchers at the University of California (Irvine) for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of: Computer-Aided Programming for Multiprocessing Systems Resource Management for Distributed Systems Subcompact Processes for the Hypercube Architecture Testbed-based Validation of Techniques for Fault Tolerance in Real-Time Tightly-Coupled Computer Networks